Parallel Decompositions for Network-Structured Problems

This project will extend past research on parallel optimization in solving problems with embedded network structures. The research will be mainly concerned with stochastic network models and multicommodity network flow problems. The agenda for algorithmic research is to design and analyze decomposition algorithms for both problem classes. The agenda for parallel computing is to design implementations of the algorithms for two broad paradigms of parallel computing: coarse-grain MIMD architectures, and fine-grain massively parallel computing SIMD architectures. The plan is to implement and evaluate empirically all of the algorithms on: a CRAY Y-MP supercomputer with 8 processors, a Sequent Symmetry S81 with 21 processors and the Connection Machine CM-2 with 32K processors. The goal is to solve problems with over 1 million variables and 500,000 constraints within acceptable solution times, using models derived from real applications.